Molecular Mechanisms by which Maternal Touch Regulates Growth Related Gene Expression

Survival of the mammalian neonate is highly dependent on its ability to
process sensory information and then adapt to changes by choosing an
appropriate behavioral and physiological condition. Because the mother
normally comprises the prime source of sensory input, she essentially
determines the infant's psychobiological state. Previous work from this
laboratory has shown that the loss of certain tactile cues from the mother
initiates in the rat pup and human infant a shift from a growth strategy to
one of energy conservation and growth suppression until contact with the
mother is re-established. Overall the specific goals of this project are
1) to define the roles of CNS Bata-endorphin and bombesin in mediating how
tactile stimulation by the dam regulates cell development in the pups and
2) to determine the molecular mechanisms by which maternal tactile
deprivation (MTD) suppresses peripheral organ responsivity to the
growth-promoting hormones GH and prolactin. Growth-related molecular
parameters i.e. DNA synthesis and expression of the ornithine decarboxylase
(ODC) gene in developing organs will be assessed and used as indices of the
altered maturation resulting from MTD.

The similarities between MTD syndrome in rat pups and human babies suggest
a common etiology. Hence, identifying the underlying mechanisms by which
maternal-infant interactions optimize growth potential in the neonate is
essential in order to advance our understanding of the basic principles
governing normal mammalian development. As ODC activity is obligatory for
normal cell replication and differentiation, these mechanisms represent an
important control point at which "nurturing touch" regulates neonatal
development. Such a mechanism can explain the maladaptive consequences of
disrupting mother-infant tactile interactions as occurs in isolated
premature and in non-organic failure to thrive human infants.